Developing In Situ Real-Time Image Compression and Telemetry Capabilities for the Vertically Profiling Video Plankton Recorder

Gallager, 9820103

Funds are provided to develop and implement near real-time image processing
and bi-directional telemetry capabilities for the Autonomous Vertically
Profiling Plankton Observatory (AVPPO). AVPPO was designed to collect
high-resolution time-series data on the vertical position and taxonomic
composition of the plankton together with ancillary environmental data on
spatial scales of mm to 100 m in high-energy Shelf regions of the ocean.
Presently, AVPPO stores all hydrographic and video data on video tape,
which is the limiting factor for deployment length. Further development
will enable the processing of both the hydrographic and video data in
real-time, thereby allowing rapid data transmission to shore after each
profile. A single high-resolution digital camera will replace two standard
video cameras. Video data will be compressed 90 fold using new wavelet
compression technology then recorded on a 6 Gb hard drive for a maximum of
about 30 h continuous recording, thus extending the profiler's capability
to about 300 profiles from 100 m depth. Full duplex interactive
communications through VHF, cellular phone, and possibly satellite links
depending on the bandwidth requirements of the sensor systems will also be
implemented. Ultimately, this technology will allow long-term,
high-frequency monitoring of critical environmental variables which would
be impossible by conventional sampling systems.